Unroofing History of the Early Proterozoic Penokean Fold- and-Thrust Belt

Recent studies have indicated that plate-tectonic processes were active at least as far back as the early Proterozoic. Work has focused on orogenic compressional features, and a fold and thrust belt, for example, has been delineated in the Penokean orogeny in central Minnesota. However, little work has been done on post-orogenic aspects of these old systems, and the demonstration of large-scale extension during late-stage processes that helps return rocks to the surface in young orogenies prompts the examination of this possibility in the Penokean Orogeny. This project will employ structural analysis and extensive age dating to attempt to constrain the timing of cooling and to use these data to determine if simple erosion is sufficient or if tectonic denudation was also involved. Results will help understanding of the late-stage processes in the Penokean Orogeny and provide additional insight into early proterozoic plate tectonics.